Facilities Center Instrumentation for Resource Biotechnology

A central focus in the future development of biotechnology will be the application of modern molecular genetics, ecology, biochemistry, immunology, and computer science to developing the resources of underdeveloped nations. Successful development will require the interrelated application of these technologies to agriculture and to the alleviation of hunger and disease. The nation that pioneers these applications will emerge preeminent in 21st century biotechnology. Washington University is establishing a multidisciplinary Center for Resource Biotechnology that will concentrate on producing this next generation of biological knowledge. The Center will involve faculty in the Departments of Biology, Biochemistry, Chemistry, Medicine and Chemical Engineering and researchers at the Missouri Botanical Garden and in private industry, derive technical and financial support from companies with active biotechnology research endeavors, and use many existing facilities at Washington University, including excellent Fermentation, Microscopy, Protein Chemistry and Monoclonal Antibody Facilities and A VAX Computer Network. This application requests funds to equip two additional facilities required for the Center: a Plant Growth Facility to provide controlled growth environments and an Integrated DNA Chemistry Facility to provide oligonucleotide synthesis and automated DNA sequencing capabilities. With the completion of these two facilities, the Center for Resource Biotechnology will be a strong force for continued U.S. prominence in biotechnology.